Travel Grant: Third International Conference on Recent Advances in Structural Dynamics and Visit to the Institute of Technology, Lund, Sweden; July 18-22 and July 25-27, 1988

The Principal Investigator is presenting a paper entitled "Friction Damping Due to Interfacial Slip" at the Third International Conference on Recent Advances in Structural Dynamics. He is also visiting the Lund Institute of Technology in Sweden where he will be discussing structural acoustics with Prof. Peterson.